Purchase of a 400 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Carnegie Mellon University will acquire a 400 MHz NMR Spectrometer. This equipment will enable faculty to carry out research in the following areas: a) magneto-electronics of transition-metal clusters; b) studies of supramolecular assemblies of cyanine dyes on nucleic acid templates; c) environmentally benign hydrogen peroxide activators; d) characterization of the catalyst used in atom transfer radical polymerization; e) characterization of conducting polymers used in self-assembled and nanoscale materials; and f) determination of the rate of gated charge transfer.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including catalysis materials chemistry.